Acquisition of a Gas-Source Ratio Mass Spectrometer for Paleoclimatology and Paleoceanography Research at WHOI

The award will allow the purchase a new Finnigan Mass Spectrometer for the paleoceanography group at Woods Hole Oceanographic Institution. A multi-sample "Kiel" device is also be installed for the capability to analyze a large number of samples automatically around the clock. Office of Naval Research and the Institution will share the cost of the new machine. The Woods Hole paleoceanographic community consists of nine very productive PIs and the existing mass spec facilities are either dedicated to specialized use of cannot accept a large addition load of isotopic analyses.